CRI: IAD - Web Accessibility Laboratory

This grant will make it possible to establish a laboratory for Web accessibility. This computing research infrastructure will enable research on technologies for processing Web content for multiple user populations, including users with visual disabilities, mobile users, and computer science researchers. In particular, the laboratory will be used to perform research on transaction processing and for extensive evaluation activities. Central to this work is a non-visual Web browser called HearSay, targeted at users with visual disabilities.

The broader impacts of the research made possible by this infrastructure include providing greatly improved tools to allow visually impaired people to perform important tasks on the World Wide Web, such as: completing a survey at the social security administration, reserving a book at a university library, online bill paying, and shopping.